The GK-12 Program In Hawaii: A Model for Integrating Research in K-12 Science Education

This proposal describes a Track 3 Accomplishment Based Renewal from the University of Hawaii. The focus of this project has been on ecology, evolution, and conservation biology. K-12 students work with Graduate Fellows on their ongoing research. Fellows work with K-12 teachers to define activities, according to the needs of their research, but do so within the context of semester-long training provided by the Curriculum Research and Development group in the University of Hawaii College of Education. This proposal looks to provide funding towards continuing the activities of Track 1 and 2 GK-12 program focused on ecology, evolution and conservation biology as it pertains to the unique setting offered by Hawaii. Furthermore, the Track 2 program failed to fully institutionalize the GK-12 program, and the proponents are asking for two more years to ensure sustainability through funding efforts of this proposal.